Complex Carboranes as Weakly Coordinating yet Functional Anions

In this project, funded by the Chemical Structure, Dynamics & Mechanisms B Program of the Chemistry Division, Professor Vincent Lavallo of the Department of Chemistry at the University of California-Riverside is developing new classes of ionic compounds with interesting properties. An ionic material is a salt. Professor Lavallo is developing novel ionic materials where both the negatively charged part (anion) and the positively charged (cationic) portion form new materials that may have applications in industries ranging from pharmaceuticals to catalysis to environmental waste remediation. This group has a long history of mentoring high school students from underrepresented groups and will continue and expand these outreach activities. In addition, undergraduate and graduate student researchers will be directly involved in the project and provided with training to prepare them for entry into the workforce in high technology areas.

Weakly coordinating anions generally function as spectators with little or no function in chemical reactions. In this project, the implementation of super bulky phosphines and N-Heterocyclic Carbenes (NHC), containing two covalently bound polyhalogenated closo-carborane anions, will be explored as weakly coordinating anions that are also capable of controlled reactivity. The spectator carboranes that flank the phosphine and NHC lone pairs of electrons provide kinetic protection at these reactive sites, enabling the formation of complex ion pairs that contain both a reactive cation and anion. These systems are akin to traditional frustrated Lewis pairs (FLP), except that these species are electrostatically tethered. Such species could achieve more challenging bond activations/group transfers for C-F bond activations, exemplified by the CF bond scission of CF4, a potent greenhouse gas. Additionally, these systems will provide a unique opportunity to isolate the so-called elusive encounter complex in FLP chemistry. These systems will be formed via the solid state hydrogenation of crystalline ion pairs and studied via subsequent analysis via cryo micro electron diffraction. A second embodiment of this project is the exploration of ligand effects on anionic Au(I) hydroamination catalysts, supported by the dianionic phosphines and NHCs. These transition metal anions will be paired with trityl and silylium ions to form reagents capable of generating highly reactive carbocations in the coordination sphere of the metal. Such reactions may lead to a heterolytic oxidative addition and unprecedented low-coordinate alkyl/aryl Au(III) compounds. The targeted Au(III) compounds will have two cis accessible coordination sites and thus may be capable of classical d8 transition metal catalysis. The ability of these species to mediate migratory insertion, carbonylations, as well as other reactions mediated by other low-coordinate D8 metals will be explored.